U.S.-Switzerland Dissertation Enhancement: Advance Interface for Vehicle Teleoperation

0072097
Thorpe

This award for dissertation enhancement in intelligent and information systems involves Charles Thorpe and his graduate student, Terrence Fong, of Carnegie Mellon University and the research group of Charles Bauer of the Swiss Federal Institute of Technology (Ecole Polytechnique Federale) in Lausanne, Switzerland. The project, which addresses research and applications in vehicle operation (remote driving) in general, focuses on advanced teleoperation operator interfaces. In collaboration with the Swiss group, Terence Fong's dissertation research will (1) investigate peer-to-peer human-computer interaction and adjustable autonomy; (2) create web-based user interfaces to enable teleoperation by novices without instruction or training; and (3) develop techniques for creating sensor fusion displays suitable for vehicle teleoperation.

This award will support the incremental costs of the international collaboration; that is, Fong's travel to Lausanne, Switzerland and his living expenses. The project takes advantage of Swiss expertise in interfaces, which take an active role in human-computer interaction, flexible adaptation, unique facilities at the Lausanne campus. The project will advance fundamental understanding of collaborative human-robot control and remotely operated vehicles and systems.